Mathematical Sciences: NSF-CBMS Regional Conference on Function Estimation in the Context of Independent and Dependent Observations; Davis, CA; June, 1989

Professor Murray Rosenblatt of the University of California at San Diego will be principal lecturer at an NSF-CBMS Regional Conference to be held at the University of California at Davis in June of 1989. The lectures will discuss nonparametric function estimation in the context of not necessarily independent observations.